Mathematical Sciences REU Site: Undergraduate Research in Mathematics

This REU site award provides support for ten undergraduate researchers in mathematics. The research at this site will come from some of the areas of probability, operations research, number theory, partial differential equations, and dynamics. The program will run for two months. There will be seminars twice each week in which the students will present their work. Outside visitors will also be asked to participate.